Autoregulation of Gene Expression by an Allosteric Enzyme

Analyses of simple and complex genetic loci in microorganisms continue to reveal the presence of new and distinct regulatory mechanisms. The ilv genes of Escherichia coli K-12 will serve as the principle focus of the proposed research. The objectives are: 1. Identify and characterize the sequences required for the expression and potential regulation of the promoters located in the ilvGMEDA cluster by selecting mutants in vivo with altered expression of an indicator gene, use nuclease Bal-31 to generate deletions in vitro, and use standard in vitro mutagenesis techniques to generate mutants predicted to have specific phenotypes. 2. Clone the coding sequences of the ilvD and ilvA genes to suitable expression vectors, such as plasmid pk30 or pAS1, so that these enzymes can be purified for in vitro studies and for amino terminal sequence analysis, in order to compare the actual and predicted translational start sites for these gene products. 3. Test the apparent dependence of the synthesis of the ilvO coded 15 kd protein upon ilvG expression using ilvO-lacZ fusions on plasmids and as single copy chromosomal forms. Isogenic strains with and without chromosomal deletions of ilvO will be monitored for expression and regulation of the ilvGEMDA genes. 4. Test our working hypothesis that the inhibition of cell growth observed following arabinose induced expression of ilvO on plasmid pMC81 derivatives is due to readthrough into the closely linked rrnC cluster and the production of anti-sense transcripts of the unique tRNA Trp gene trailer of the rrnC cluster.